Gordon Research Conference on Solid State Chemistry, Plymouth State College, Plymouth, N.H., July 22 - 27, 1990

A modest $4,000 has been requested for partial support of a solid state chemistry conference that will be addressing current fast- breaking areas of high priority at NSF viz., synthesis and processing.